Modeling the Design Limit States of Structural Composite Lumber

This project will create advanced computational tools to predict the strength of Structural Composite Lumber (SCL) — an engineered wood product that is used extensively in light-frame construction. This predictive capability is critical to encouraging the design of new SCL products and allowing engineers to predict the strength of structures built of SCL. Project goals are to be accomplished through experiments and analytical and numerical modeling of two SCL materials, Parallel Strand Lumber and Laminated Veneer Lumber. The research will be conducted in four phases: (1) an experimental phase that will establish the strength of SCL under different loadings and will measure the internal structure of SCL through x-ray computer tomography; (2) computational modeling that incorporates explicit representations of the material structure and properties (3) the development of models for the behavior of SCL that can be used in structural design, and (4) making these material models available to practicing engineers who use commercial analysis programs.

The project will deliver long-needed tools for strength analysis of SCL - free to manufacturers and inventors to develop and use. Quick and inexpensive numerical evaluation of SCL will foster innovation in new wood product design with significant environmental and economic benefits. By making the predictive capability widely available, this project marks a first step in advancing the practice of wood design to a state comparable to that of steel and concrete. The work will lay a scientific foundation for investigations into other wood products such as glue laminated timber or plywood. Graduate level course modules on wood composite modeling are part of an integrated plan for research and learning.